Investigation of hormonal regulation of transcription using permeabilized cells

The hormonal modulation of gene expression is a complex series of events starting with hormone binding to receptor and ending with transcription factor bound to specific DNA elements interacting with the transcription machinery. Transcription of the gene encoding phosphoenolpyruvate carbonxykinase (PEPCK) is stimulated by glucocorticoids and glucagon (via cAMP) and inhibited by insulin in the liver-derived H4 cells. DNA elements mediating the hormonal affects on PEPCK gene expression have been identified. It has been demonstrated that transcription of the PEPCK gene continues to be hormonally regulated after lysolecithin permeabilization of H4 cells. This treatment allows chemicals, including macromolecules, to enter cells when normally they would be excluded. This proposal describes the refinement of the permeable cell transcription system and its use to investigate the mechanism of hormonal regulation of gene expression. In vivo footprinting of the endogenous PEPCK gene in lysolecithin permeabilized H4 cells will be used to determine if hormone causes induction, replacement, or no change in factor binding to hormone response elements. In vivo footprinting in the transcriptionally active permeable cell system as well as of the transcription initiation complex and to assess if hormone affects the stability of any of these protein-DNA complexes. This proposal attempts to bridge the gap between the intact cell which is difficult to probe biochemically and cell extracts made by destroying the cell, but which are easily probed with biochemical approaches. This new method allows the cell to become permeable to biochemical probes without destroying the overall survival of the cell. We wish to begin to determine some of the properties of the chromosome using these cells. %%% The proposed work investigates the molecular mechanisms involved in regulation of expression of specific genes within cells. As part of the research, the investigator will develop experimental methods to make possible experiments which are not currently feasible given existing methods.